Research Initiation Award: System Identification for Control Design Applications

This proposal addresses topics in the area of the worst case identification of dynamical systems. The goals of this research program are to develop methods for system identification that reduce the uncertainty surrounding a given dynamical system in a way that is matched to robust control theory. There will be three areas of concentration. The first area of research will be algorithm development for linear time invariant systems using a combination of a priori and experimental information. The error criterion of identification will be chosen to be compatible with robust control design techniques. A study will be made of the intrinsic difficulty of identification of each choice of a priori and experimental information using the techniques of Information Based Complexity theory. The second research area is the study and the development of worst case identification methods for the determination of linearized models of nonlinear systems. The research will develop methods for study intrinsic limits of identification of locally unstable linearized dynamics of smooth nonlinear systems when experimental data is obtained from closed loop experiments. The third research area is the study of offline adaptive control techniques. The research will study the merging of worst case system identification with robust control theory with the goal of developing efficient and nonconservative methods for utilizing tools for the reduction of uncertainty and the consequent design of feedback controllers in order to meet a given performance goal.